Response Evauation of the Survey of Industrial Research and Development

This project will enable the Bureau of the Census to perform a response evaluation of a sample of approximately 100 respondents to the annual NSF Survey of Industrial Research and Development. The Bureau of the Census proposes to interview the industry officials who complete the annual questionnaires so that the companies' data can be reported more completely and consistently. In addition, information acquired in this project will allow NSF to evaluate the current survey instrument and improve it and its instructions. As a result, survey responses from all companies should be more complete and consistent in future years. The survey, a vital element in NSF's efforts to measure scientific and technological activities in industry, collects data on dollar volume of research and development, sources of financing, employment of R&D scientists and engineers, and other economic characteristics of industrial performance. The survey data provide policy makers with a broad range of statistical information for industrial research and development spending and employment. Therefore, the Foundation desires to maintain, through this response evaluation, the high quality of the data collected and tabulated in the survey.